Scientific Computing Research Environments For The Mathematical Sciences (SCREMS)

Abstract

The Department of Mathematics at the University of South Carolina will
purchase computing and visualization equipment which will be
dedicated to the support of four research projects in the mathematical
sciences. The equipment will support ongoing research in:
(1) Nonlinear approximation in multiresolution analysis with
applications to digital terrain maps and medical imaging,
(2) Domain decomposition and multigrid methods for partial differential
equations, (3) Eulerian-Lagrangian localized adjoint methods for advection-
diffusion equations, and (4) Computational number theory. The integration
of serial, parallel, and visualization equipment, complete with requisite
software, will provide the necessary computing environment for the
investigators to perform the educational and research missions of these
projects